Biodiversity and Ecosystem Informatics - BDEI - Planning Workshop on Biodiversity and Ecosystem Informatics for the Indian River Lagoon, Florida

EIA-0131889
Musavi, Muhamad
University of Maine

BDEI: Planning Workshop on Biodiversity and Ecosystem Informatics for the Indian River Lagoon, Florida

Summary

This proposal solicits funding to organize and conduct a planning workshop that will establish
and facilitate research on the informatics needed to address complex issues of biodiversity and
ecosystem processes within the Indian River Lagoon. This workshop will provide the
opportunity and resources for collaboration and discussion among scientists from diverse fields
of biodiversity, ecological sciences, remote sensing, geographic information systems, computer
science and intelligent systems. The topics to be discussed will include investigation of novel
computational intelligence techniques for modeling, prediction, analysis and database
management of the disparate and complex data for the Indian River Lagoon. The explicit
products of the proposed workshop will be a white paper and technical report, a formal research
agenda that incorporates informatics into existing and planned research, and preparation of a
competitive proposal based on the recommendations and preliminary work defined by the
workshop.